Continuing REU Site: The Institute for Visual Information Processing

This project is to bring ten students, in each of two successive summers, to the University of Nebraska-Lincoln campus to work in digital image processing and computer vision. Projects that will be part of the program include the following; image restoration and automatic target recognition, image restoration and infrared imaging system design, adaptive image restoration of satellite data, digital archive of the Mari Sandoz collection, image analysis of irrigation systems, human face recognition, and classification based on physical features. The program involves instruction, research, and enrichment activities.